Laboratory Equipment for Microkernel based Embedded Systems Design Projects

This project is setting up a development platform for embedded system design projects that will use a real-time microkernel. The platform includes: a) real-time microkernel software used in designing embedded systems ranging from small single processor systems to network distributed systems; b) core hardware cards that contain base hardware required for any embedded system development; c) an In Circuit Emulator (ICE); and, d) 4-PC networked platform for hardware and software development of embedded systems around the microkernel. Major use of this equipment occurs in undergraduate student's major qualifying projects, which in addition to being significant also provides the capstone design experience required by ABET. The use of these components is based on the philosophy of not starting embedded system hardware and software development from scratch. Instead, tested hardware and software modules are used and reused when possible so that the students can successfully undertake and complete ambitious embedded systems projects. Additionally, using a microkernel provides a systematic design methodology, experience with tools commonly used by engineers in the industry, and a better appreciation for the interaction between operating systems, device drivers, and the underlying hardware. The emulator speeds up hardware and software co-design processes significantly. Having a dedicated development platform for embedded system projects allows students to efficiently share and access the equipment. Training and experience gained with this equipment will prepare students to better tackle complex problems when they join the industrial work-force, and will help in structuring a top quality program in embedded system design that can serve as a model to others.